SBIR Phase II: Unmanned Aerial Payload Systems for Live-line Access

This Small Business Innovation Research Phase II project is expected to significantly enhance the commercialization potential of unmanned aerial systems (UAS) technology, targeting an addressable market valued at over $16 billion in overhead line maintenance and smart grid solutions. By reducing the need for human labor in hazardous conditions, the technology promises to improve workplace safety and reduce operational costs for utility companies, potentially saving them millions annually. Additionally, the project will contribute to environmental sustainability by enabling more efficient maintenance and utilization of the electric grid, supporting energy reliability and growing electricity demand. The broader societal impacts include increased grid resilience, reduced environmental impact, and the creation of new job opportunities in the UAS sector. This innovation not only addresses critical safety and efficiency challenges in utility operations but also enhances scientific and technological understanding of drone applications in high-voltage environments. Furthermore, it aligns with national goals for American energy and UAS leadership and has the potential to drive policy changes that support the adoption of innovative technologies in critical infrastructure construction and maintenance, ultimately serving as a model for other industries facing similar challenges.

The intellectual merit of this project lies in its innovative approach to enhancing the safety and efficiency of electric infrastructure maintenance through the deployment of unmanned aerial systems technology. The primary research objectives include validating the safety and reliability of this technology via extensive field testing and developing advanced stabilization solutions and novel payload approaches for UAS operations in high-voltage environments. This research will involve rigorous data collection and analysis to establish a comprehensive dataset of reliability metrics, which will inform best practices for UAS deployment in utility work. Anticipated technical deliverables include a user’s guide of best practices, enhanced stabilization technologies, and expanded applicability of UAS payload solutions across various power infrastructure configurations. By advancing the understanding of UAS capabilities and limitations, this project aims to integrate UAS technology seamlessly into existing maintenance practices, ultimately contributing to safer and more effective infrastructure management. The outcomes will provide valuable insights for the broader scientific community engaged in UAS applications for critical infrastructure.